Undergraduate Laboratory in Composite Materials

An undergraduate lab unit in composite materials, part of a mechanical and aeronautical engineering laboratory course, is being established. The fundamental ideas demonstrated include the facts that composites are engineered materials, built from constituent building blocks, that their microstructure is widely tailorable and has a dramatic influence on properties, that the properties are strongly anisotropic, and that composite materials are part of an engineering loop which involves constituent properties, processing, and microstructure. To vividly illustrate these ideas students make composite specimens, measure their microstructural features, test their mechanical properties, and look at the inextricable interactions between all three. A unique feature of this lab is the use of computer-aided image processing as a technique to quantify the complex microstructures of composites. As a result of this lab students have a greatly improved sense of how composite materials truly are engineered materials, and are better prepared to incorporate composite materials into their future engineering.